U.S. - Argentina Cooperative Research on Localization and Function of Isoforms of the Catalytic Subunit of the Na K-ATPase

This award supports cooperative research in enzyme biochemistry between William Stahl of the University of Washington in Seattle and Marta Antonelli of the Institute of Cellular Biology in Buenos Aires, Argentina. The study will examine the role of specific sequences of isoforms of the catalytic subunit of the Na,K-ATPase in ouabain binding. One important goal is to establish whether the C-terminus of the catalytic subunit is intracelular or extracellular. In addition, a long term goal is to establish localization of isoforms with different ouabain binding characteristics by light microscope immunocytochemistry. Dr. Antonelli has support for this work at the Institute through collaboration with its Director, Jorge Saavedra's immunocytochemistry group. The have extensive experience in light and electron microscope immunocytochemistry. Their methodologies have been utilized by Dr. Stahl in his laboratory. The collaboration will provide an opportunity to make use of the excellent facilities in Argentina for localization of the Na,K-ATPase isoforms to provide insight into the structure of the cardiac glycoside binding site in different isoforms of the catalytic subunit. This is complementary to studies in Seattle on expression of mRNAs coding for isoforms with high and low affinities for cardiac glycosides. Brought together in this collaboration, these efforts will provide a broader, more comprehensive approach to understanding functional aspects of Na,K-ATPases.